Use of Surfactant Solutions in Separation Processes

The IR internal reflectance spectroscopy will be used to follow the adsorbed species from aqueous solutions of surfactants and/or polymers. This novel technique allows both kinetic and molecular/bonding-change information. This basic information is important to tertiary oil recovery and polymer processing.